CROSS-CUTTING IMPROVEMENTS: FAIR-FAIR: Findable, Accessible, Interoperable Reproducible - Facilitation of Accessible Imaging Research for Plant Phenotyping and Beyond

Accurately measuring numerous plant traits (phenotypes) is essential to breeding, developing, and managing crops, and understanding fundamental processes of plant systems that we require for food, fuel, and fiber. Image data for plant phenotyping scales from cellular phenotypes, to whole plants, to plots, to fields. Interpretation and utilization of public data hinges on there being complete metadata associated with image datasets. Standards such as Recommended Metadata for Biological Images and Minimum Information About a Plant Phenotyping Experiment have been developed for the bioimaging and plant phenotyping communities, respectively. However, adoption and utilization of these standards by the community are not consistent in part because the plant phenotyping community, and the larger imaging community do not have standard places to share image data as is the practice for DNA sequence data (e.g. Sequence Read Archive, National Center for Biotechnology Information, etc.). A successful research image data sharing platform and ecosystem would aim to lower both the technical and financial challenges to data sharing as well as promoting the use of community standards for making datasets FAIR. The project develops an image data sharing ecosystem that builds on three existing tools and platforms to solve this important open science problem in plant phenotyping and other research areas affordably and efficiently.

The project is supported with funding from the Directorate for Biological Sciences (BIO) and managed by the Directorate for Computer and Information Science and Engineering (CISE) Office of Advanced Cyberinfrastructure (OAC).